An NSF Workshop on Mathematics and Robotics

The investigator and his colleagues organize a workshop to
explore opportunities in robotics for synergistic collaborations
among engineers, computer scientists, and mathematicians. The
workshop brings together engineers, computer scientists, and
mathematicians to discuss examples of research needs in robotics,
to look for common themes, and to explore new ideas, rooted in
mathematics, that could advance this area. A major product of the
workshop is a report that summarizes the present state of the art
and that lays out future opportunities for collaborative
research.
Robotics is concerned with the design of mechanical
manipulators, the systems needed to control them, and various
applications such as materials handling, assembly, exploration in
extreme environments, prosthetics, and minimally invasive
surgery. For their solution, problems in robotics have drawn
heavily on techniques and ideas from engineering and computer
science. It is becoming apparent that progress on significant
open problems requires greater involvement of modern mathematics.
This workshop combines engineers, computer scientists, and
mathematicians in a joint exploration of needs and opportunities
in robotics. The workshop report is expected to stimulate both
new interactions among researchers and new insights and
approaches to this important class of problems.